U.S.-Germany Cooperative Research: Building Blocks for Nanostructures

0129303
Frank
This award supports Curtis Frank and students from Stanford University in a collaboration with Brigitte Voit of the Institute for Polymer Research in Dresden, Germany. The aim of the international project is to study a range of activites that are central to the overall goals of the NSF Materials Research Science and Engineering Center at Stanford/IBM/UC Davis and the international collabortion will receive support both from the German DAAD and from the Insititute for Polymer Research itself. The specific goals of the collaboration include increasing the characterization and processing tools beyond those currently available for nanoparticle synthesis, providing a framework for exchange of researches, especially junior researchers, allowing undergraduate students the opportunity o patcipate in an international research project. The work plan provides for extensive participation by graduate and undergraduate students in the international travel and research.